Fast Reliable Algorithms for Structured Computations

This project deals with the design of computational algorithms that blend together the practical virtues of efficiency and numerical accuracy for matrix problems with structure. The two requirements of speed and accuracy have often been regarded as competitive and, for this reason, the design of fast and numerically reliable algorithms for large-scale structured linear matrix equations has remained a significant open issue in many instances. Structured matrix equations arise in several applications in the disciplines of filtering, estimation, and control. In this way, the results of the proposed work will further play a concrete role in addressing some of the annoying discrepancies that have always existed in these areas between the theoretical findings and the practical results. These discrepancies are often due to the pitfalls of finite-precision implementations, especially in systems that involve interconnections of digital and analog components, and studies to resolve or ameliorate many of these difficulties have long been overdue. This investigation will address the challenge of combining numerical accuracy and structure exploiting techniques into a unifying framework. The project will build on the work recently done, will extend the results and the framework to a wider class of structured matrix problems, and will explore applications in filtering, estimation and control.